Forest Watch

9452792 Bartlett This three year project will develop curricular materials based on the use of Landsat Thematic Mapper data as a learning tool for students in grades 5-12. As part of "Forest Watch," the students will be involved in environmental monitoring activities, ranging from hands-on assessment of local tree species to evaluating the Landsat data for their own hometown. The curriculum, which will be written by scientists and teachers, will include activities that integrate field- and laboratory-based studies of the health of the white pine tree, a known bioindicator of tropospheric ozone exposure. These materials will be evaluated and disseminated through a series of collaborative educative workshops involving the grades 5-12 teachers, their students, and university scientists in a regional environmental monitoring research effort. The effort includes authentic problem-solving and data gathering activities such as ground truthing, laboratory analysis of branch and foliar samples from the white pine, and the processing, analysis and display of Landsat data of each school area. This grant will be administered by the Institute for the Study of Earth, Oceans and Space (EOS) at the University of New Hampshire in conjunction with WGBH, public television in Boston.